CAREER: Advancing Quasi-exact Quantum Dynamics of Complex Molecules with Tensor Network States

Henrik R. Larsson of the University of California, Merced is supported to develop new computational methods for simulating how nuclei move in molecules where quantum effects strongly shape chemical behavior. Larsson and his research group will develop more efficient and accurate simulation tools that make it possible to study complex molecules whose spectra and motions are not yet fully understood. The research group will focus in particular on fluxional molecules, which cannot be described by a single atomic arrangement only, and on molecules interacting strongly with quantum light. Through many-particle simulations of strongly entangled quantum states, which are one of the main targets of quantum computing, and controlled interactions between molecules and quantum light, the project connects molecular quantum science with NSF's priority area of Quantum Information Science. The results will support future research in chemistry, materials, sensing, and other fields that depend on understanding and controlling quantum behavior. The project will also integrate research into teaching through course-based research experiences, make new research software freely available, train students and a postdoctoral researcher in quantum sciences, and involve undergraduate and high school students in research on quantum effects.

Larsson and his research group will develop tree tensor network state methods for high-dimensional molecular quantum dynamics and spectroscopy. The work will create new approaches for representing molecular Hamiltonians in tensor network forms, incorporating molecular symmetry into quantum simulations, and developing linear-response theories that compute spectra in selected regions of experimental interest. These methods are expected to improve the efficiency of full-dimensional quantum simulations by several orders of magnitude. The research group will apply the methods to microsolvated protonated water clusters, molecules in optical cavities, and protonated methane, with the goal of explaining microsolvation, many-body quantum effects, ro-vibrational entanglement, and strong light-molecule coupling. The resulting tools will be useful beyond molecular spectroscopy for other strongly entangled quantum systems, including problems in electronic structure, condensed-matter physics, and quantum information science. Classroom-based research, open-source software development, and interdisciplinary training for postdoctoral scholars, graduate students, undergraduate students, and high school students will help prepare the next generation of scientists in computational quantum science.